MF and VHF Radar Studies of Atmospheric Dynamics at Urbana

The application of radar techniques to studies of the atmosphere provides an important means for advancing our understanding of its behavior. This work will employ special radar facilities at the University of Illinois for a comprehensive set of studies of the dynamics of the upper atmosphere between altitudes of about 2 km to over 100 km, encompassing regions known as the troposphere, stratosphere, and mesosphere. The primary goals of the research are (i) to improve understanding of how radar signals are scattered by the atmosphere, and thereby to improve techniques for extracting atmospheric information from radar data; (ii) to study turbulent structures in the upper atmosphere, and (iii) to better our understanding of the sources and climatology of atmospheric wave motions.